"Stability of Colloidal Dispersions in Non-aqueous Media"

This proposal addresses several basic issues of the colloidal stability in non-aqueous media: the effect of water content in the presence of a surfactant, modeling of flocculation induced by water, measurements on the stabilizing effect of surfactants, and the correlation between the green body microstructure and suspension stability. For this purpose, measurements of physicochemical properties, such as adsorption and zeta potential, will be performed. The molecular conformation at the solid-liquid interface will be investigated using Electron Spin Resonance and Nuclear Magnetic Resonance methods. The research has applications in ceramic and tape processing, inks, paints, and in other energy and environment related processes.*** //